Interdisciplinary Mathematics and Science Projects at Two- and Four-Year Schools: A New York State Coalition

Mathematics faculty in New York State have formed the New York State Coalition to integrate the teaching and learning of mathematics and its applications in science and quantitative subjects. The project will enable the coalition to: modify for local implementation curricular materials and approaches being developed nationally; demonstrate how faculty in mathematics and science can cooperate to develop interdisciplinary courses; continue to attract and retain students from underrepresented groups; and spur interdisciplinary innovations at participating institutions. The project includes workshops and follow-up activities.